Conference: Molecular Evolution of Physiological Processes; to be held in September 1993 at the Marine Biological Laboratory in Woods Hole, MA

A symposium on Molecular Evolution of Physiological Processes will be held in September, 1993 at the Marine Biological Laboratory in Woods Hole, Massachusetts, under the auspices of the Society of General Physiologists. This Symposium will bring together scientists who study cytoskeletal and membrane functions with scientists whose research is focused upon molecular evolution or on mechanisms that generate genetic diversity. Four lecture sessions will set the intellectual framework of the symposium: (1) approaches to analyzing nucleic acid and protein sequences and applications to phylogenetic problems; (2) recently appreciated genetic mechanisms that may underlie the evolution of increasingly complex biological systems; (3) proteins of the actin/myosin cytoskeleton: the variety of isoforms and the correlated functions these play in cell structure and behavior; and (4) structure, function and evolution of plasma membrane proteins. Sessions 3 and 4 emphasize that molecular-level studies of physiological processes are very profitably informed by ideas developed in the fields of molecular evolution and genetics, and that conserved structural motifs characterize superfamilies of proteins that may function through homologous mechanisms. There will also be poster sessions and open discussion/workshops on key topics. Keynote addresses will highlight perspectives from immunology and integrative biology. %%% A symposium on Molecular Evolution of Physiological Processes will be held in September, 1993 at the Marine Biological Laboratory in Woods Hole, Massachusetts, under the auspices of the Society of General Physiologists. This Symposium will bring together scientists who study cytoskeletal and membrane functions with scientists whose research is focused upon molecular evolution or on mechanisms that generate genetic diversity. A major emphasis of the conference is that molecular-level studies of physiological processes can be illuminated by ideas developed in the fields of molecular evolution and genetics.